Science for the Handicapped

This proposal will provide training over a three-year period to enhance the teaching capabilities of two different groups of teachers, one with a background in science, and the other with a background in the education of mildly handicapped children. The participants are middle school/junior high certified teachers of science or special education who teach science to children classified as learning disabled or emotionally disturbed. The project includes two waves of 24 trainees for three years in a summer program with follow-up sessions during the academic year. Approximately 60% of the sessions are devoted to content and the remainder to teaching methods and clinical experiences with handicapped children. In summary, the project has potential for increasing the teaching effectiveness of middle school/junior high teachers in science to children with learning disabilities. Cost sharing equals 11% of the NSF award.